High Performance Liquid Chromatography (HPLC) for Under- graduate Laboratories

This project will provide undergraduate students at the University of Michigan-Dearborn with experimental capabilities afforded by modern HPLC instrumentation. The equipment will be used in courses throughout the curriculum, including organic, advanced organic, advanced inorganic, analytical, and environmental chemistry laboratories, biochemistry, molecular biology, and a special course in chromatographic separations. Undergraduates will perform experiments which illustrate the multidisciplinary uses of HPLC and the variety of analytical applications of this powerful, widely used experimental technique, from compound identification and percent product distribution to design and optimization of separation systems. The students will gain experience with both refractive index and ultraviolet/visible absorbance detectors, and with microprocessor control of HPLC instrumentation.